Postdoctoral Fellowship: MPS-Ascend: Development of Catalytic, Asymmetric Ritter-Type Reactions of Racemic Precursors

Andre Sanchez is awarded an NSF Mathematical and Physical Sciences Ascending Postdoctoral Research Fellowship (NSF MPS-Ascend) to conduct a program of research and activities related to broaden participation by groups underrepresented in STEM (science, technology, engineering and mathematics). This fellowship to Dr. Sanchez supports the research project entitled “MPS-Ascend: Development of Catalytic, Asymmetric Ritter-Type Reactions of Racemic Precursors” under the mentorship of a sponsoring scientist. The host institution for the fellowship is Harvard University, and the sponsoring scientist is Dr. Eric Jacobsen.

The proposal aims at the development of catalytic, asymmetric Ritter-type reactions from readily available racemic precursors using hydrogen-bond donor (HBD) catalysis to provide access to value-added chiral materials for small molecule-based drug discovery. The research plan outlines specific tactics that will enable the desired transformations through identification of a suitable HBD catalyst framework, capitalizing on a synergistic network of non-covalent interactions. A combination of mechanistic and computational investigations has the potential to provide insight into the critical non-covalent interactions and catalyst features necessary for enantioinduction. Scientific broader impacts include applications to drug discovery and development of new therapeutic technologies.

The proposed project will serve as a teaching platform for the mentoring of high school, undergraduate, and graduate students from underrepresented minority groups. The PI will serve as a committee member on departmental and campus-wide diversity initiatives. The PI will participate in professional networking and conference opportunities aimed at building an inclusive community and diversifying the professoriate.